Late Paleozoic Stratigraphy and Intraplate Tectonics of the Greater Ancestral Rocky Mountains

Late Paleozoic Stratigraphy and Intraplate Tectonics of the Greater Ancestral Rocky Mountains

Charles Kluth and Gerilyn Soreghan
EAR-0423984

ABSTRACT

The late Paleozoic record of the Greater Ancestral Rocky Mountains (GARM) is an unparalleled natural laboratory for undertaking an integrated, holistic study of various components of the Earth System-including the lithosphere (tectonics), atmosphere (climate), hydrosphere (eustasy) and biosphere, and links among these systems. Unlike most regions of the world, the GARM is easily accessible, and fully endowed with a rich and well-constrained geological dataset; accordingly the fundamentals of its geology are well known in the form of a large database that includes a detailed published literature and maps, and huge volumes of industry (well and seismic) data. Furthermore, its geological history is a complex meld of an enigmatic tectonic event that occurred during the last pre-Quaternary icehouse; consequently, the stratigraphic record here preserves key information on the character of (1) intraplate tectonics, including the possible role of structural inheritance as well as the legacy of later Laramide events; (2) climate transitions of both high- and low-frequencies (e.g. greenhouse-icehouse-greenhouse, glacial-interglacial, zonal-monsoonal); (3) eustatic variations in an icehouse world; (4) the interactions between tectonics and climate (e.g. through topography), tectonics and eustasy, eustasy and climate, and impacts/links to the biosphere (e.g. evolution-extinction events, etc). The research initiative that will be discussed at this workshop will involve and impact numerous professionals and students. The expected result from this workshop is a position paper for support of integrated, multidisciplinary studies of various "geosystems" aspects of this natural laboratory known as the Greater Ancestral Rocky Mountains.